Role of Glial Cells and GABAergic Neurons in Sexual Differentiation of the Brain

Differences in behavior between male and female animals are reflected in structural differences within the brain. The hypothalamus is a brain region where there is strong ilteraction between hormones and the brain, and these neuroendocrine events are very important during development. Nerve cells, or neurons, often are clustered into groups called nuclei. Besides neurons, the brain is packed with cells called glial cells, which have a variety of functions that modulate neural development and activity. This project asks novel questions on whether glial cells in a nucleus of the hypothalamus are sexually differentiated during a neonatal "critical period." Cellular marking techniques and molecular biology are used to explore cellular changes in morphology and gene expression in these glial cells in response to steroid hormones. Similar techniques will be used to localize sites of membrane receptors for steroids, to determine whether the steroid action is directly on glial cells, or instead is an indirect influence via steroid-concentrating neurons. Results will be important for developmental neuroscience as well as neuroendocrinolgy, and will help understand how the basic structure of the brain is related to behavior.